"Models of Peptide Action" The Fifteenth Annual Winter Neuropeptide Conference; Breckenridge, Colorado February 5-8, 1994

9321667 Chronwall The purpose of the Fifteenth Winter Neuropeptide Conference is to encourage experts and young scientists in the expanding field of peptide research to discuss recent findings related to "Models of Peptide Action." The topics range from behavioral aspects to basic mechanisms of action, passage of peptide across the brain blood barrier,cytokines, neurotrophism and development. In addition, a plenary presentation and a poster session will be included. It is anticipated that 80-120 participants from all over the US as well as Europe and Japan will attend. ***